Algorithms and Numerical Analysis for Partial Differential and Integral Equations

Lars Wahlbin Abstract It is proposed to work on several problems in the numerical analysis of finite element methods for partial differential and integral equations. A. Maximum-norm estimates for finite element methods in second order hyperbolic problems: In contrast to the situation for elliptic and parabolic problems, the theory in the case of hyperbolic problems is very incomplete. B. Superconvergence in finite element methods: The main problem is to ascertain when (and when not) superconvergence holds up to boundaries. C. Finite element methods in problems with anisotropic diffusion: In the singularly perturbed case, very little is known. D. Finite element methods in partial integro-differential equations: The main problem lies with enormous memory and work requirements in problems with an integral-type memory term. It has been estimated that 2/3 of all computer runs involving approximation of scientific or engineering models are useless: not because they are necessarily wrong but because you do not know that they are right and so cannot trust them. This is particularly annoying when you are formulating a new model and want to find its predictions to test against reality. You do not know whether a peculiar prediction is inherent in the model or crept in via a faulty computer simulation of it. The present proposal is aimed at investigating how a selection of widely used simulation methods behave on mathematical problems with various quirks. It will thus give guidelines to people using numerical methods and help them in judging whether a particular series of computer runs is reliable or not in representing a scientific model.